"Workshop on Key Challenges in the Implementation of Convergence"; September 16-17, 2013; National Academy of Sciences in Washington, DC

The "Workshop on Key Challenges in the Implementation of Convergence" will be held September 16-17, 2013 at the National Academy of Sciences in Washington, DC. The grant will support the participation of approximately 15 younger and diverse faculty members. An important area of development propelling research in the life sciences has been the integration and collaboration of its research communities with the physical, mathematical, computational, and engineering sciences, often referred to as "convergence." The level of engagement to implement this concept goes beyond one field simply borrowing tools or techniques from another to emphasize the ability to forge new kinds of working partnerships and take on new types of challenges. Convergence of the life sciences with fields including physical, chemical, mathematical, computational, and engineering sciences has become a key strategy to tackle complex challenges and achieve new and innovative solutions. Numerous reports have explored advances that are enabled when multiple disciplines come together in integrated partnerships, and as a result institutions have increasingly moved to implement programs that foster such convergent research. The workshop will gather practitioners who embody or seek to embody convergent and transdisciplinary research in their laboratories and organizations, leaders from academia and industry, and representatives of foundations and agencies to discuss strategies that programs have implemented to achieve this vision, what pitfalls were encountered, and what practical lessons have been learned. An ad hoc committee appointed through the National Academy of Sciences will distill the discussions and the key messages, conclusions, and recommendations into a report that seeks to provide useful guidance for the community. NSF support will enable a broader group of faculty members to participate in the workshop and its discussions, particularly younger faculty members and/or faculty members from diverse institutions or from underrepresented groups. Engaging diverse perspectives in a discussion of the strategies and challenges encountered while implementing convergent science will be important if the promise of this convergence is to be realized. Such younger and diverse faculty members will bring a wealth of ideas, perspectives, and enthusiasm to the discussions. The workshop will help to articulate the excitement of convergent science and explore examples of how it can be implemented.